Flow Structure, Mixing, and Chemical Reaction in Combusting Turbulent Flows

Research in turbulent non- premixed combustion will be conducted. The issue of flame-turbulent flow is of fundamental importance to combustion science and technology. The approach of simultaneous measurements of flow topology and reaction structure is ideally suited to obtain detailed information onturbulence-reaction field interactions and to gain deeper insight intofundamentals of turbulent combustion. In this approach, advanced lasertechniques are to be used which are ideally suited to obtain detailedinformation. Most high-yield combustor systems operate in the turbulent regime; acquiring basic knowledge in the area can lead to improvements in combustion technology.